A Modular Calculus

Students are benefiting from a new calculus curriculum that features early development of multivariable functions and derivatives, a less sequential approach to the calculus topics, and the development of team projects with computer laboratories and written lab reports.